National Science Foundation Alan T. Waterman Award

Excerpt from Plenary Executive Closed Session minutes of the March 30, 2005 National Science Board Meeting
Approval of 2005 Alan T. Waterman Awardee

AGENDA ITEM 3: HONORARY AWARDS

Alan T. Waterman Award

Dr. Arden Bement, NSF Director, reported that the Alan T. Waterman Award Committee recommended Dr. Dalton Conley, Professor of Sociology and Public Policy and Director of the Center for Advanced Social Sciences Research at New York University, be given the 2005 Alan T. Waterman Award. Dr. Dalton would be the second social scientist to receive this award. The first social science recipient of the Waterman Award was Dr. Lawrence H. Summers in 1987.

The Board, having considered the candidate of the Alan T. Waterman Award Committee, unanimously APPROVED the recommendation to present the 30th Alan T. Waterman Award to Dr. Dalton Conley.

Press Release 05-067
NYU's Dalton Conley is the First Sociologist to Win NSF's Waterman Award
Growing-up years gives scientist special lens on cultural and sibling inequalities

Alan T. Waterman Award
Credit and Larger Version
April 27, 2005

When he was growing up in a New York City East Side neighborhood, Dalton Conley recognized the societal advantages of being a white male with middle-class values, even though his family was poor and his neighborhood was predominantly African-American and Latino.

"At first, I had a heightened racial awareness. Class differences did not appear to have much impact on me at that age, and I'm not sure we had a language of class," Conley, a prominent New York University sociologist, says. "But I did come to know the advantages that came to me because of being in a dominant racial group."

Today, the National Science Foundation (NSF), the independent federal agency that supports fundamental research across nearly all fields of science and engineering, recognized Conley as one of the nation's top young sociologists. The 35-year-old Conley will receive the 30th annual Alan T. Waterman Award, named for NSF's first director. It is the first time a sociologist has received the honor, which carries a $500,000 research award.

During college, Conley's interest in immunology was overtaken by his greater desire to understand broader societal puzzles, such as how socioeconomic status and advantage is transmitted through generations and how social inequality is reproduced by mechanisms such as wealth transfer, health and status at birth, racial makeup and changing family circumstances over time. He has been studying, writing and publishing ground-breaking works ever since in a direct and popular style that has heightened his impact among academic peers and raised the attention of policy makers.

"Dr. Conley's work is the epitome of the kind of research that NSF vigorously supports," said Arden L. Bement, Jr., NSF director. "His research is filled with new and untried ideas, carved into a creative path toward solving fundamental questions of society. He communicates his findings directly and eloquently, reaches varied audiences, and by so doing, opens new avenues of interest and study, not to mention he keeps government policy makers on their toes."

Last year, Conley, who is the director for NYU's Center for Social Science Research, published The Pecking Order, a book the Washington Post called "lucid and provocative" in its explanation of how the forces of income, gender, health and birth order in families result in "a tangled web" of inequalities that create a family's own pecking order.

"We like to think of the family as a haven in harsh world - a level playing field," Conley said. "But it's really more like a bubbling cauldron of inequality."

An NSF Faculty Early Career Award supported Conley's four-year study upon which the book, and other relatated papers, are based.

Conley has written several other books, including Being Black, Living in the Red, in which he shows that class dynamics since the Civil Rights era - specifically family wealth levels - appear to be the basis of persistent racial differences in areas of life ranging from educational success to the likelihood of relying on welfare. Race, however, continues to determine wealth levels, Conley argues. He believes it was his best work.

"There was a very clear, simple study design that clearly showed how the inheritance of race and health differences manifest themselves into class differences that have long-lasting consequences," he said.

Conley's book, The Starting Gate: Birth Weight and Life Chances, extends the "nature-or-nurture" discussion by showing how biological and social factors combine to produce different life-chance outcomes of family members. It is a "genes aren't everything" argument that takes into account the interplay of multiple causal forces, regardless of their origination. For example, economic resources of a family can sometimes counteract biologically inherited effects, leading to different policy implications for truly "at risk" segments of society, that is, those who face both biological and social disadvantages.

"I'm driven by empirical puzzles and other theoretical problems to solve," Conley says. "Each book or article seems to lead to another piece of the puzzle. On the other hand, I'm also interested in larger-scale studies, integrating genetic and social research, for example. I'm interested in large-scale policy questions, doing large-scale, social-intervention experiments, using control groups, which dovetail into social and economic policy.'

-NSF-
Media Contacts
William C. Noxon, NSF (703) 292-7750 [email]

Program Contacts
Susan Fannoney, NSB (703) 292-8096 [email]

Related Websites
For more information on the Waterman Award, see: http://www.nsf.gov/nsb/awards/waterman/waterman.htm#information
For more information on Dr. Conley's work at NYU,: http://www.nyu.edu/nyutoday/archives/18/11R/Stories/conley.html
NYU Press Release: http://www.nyu.edu/public.affairs/releases/detail/637

The National Science Foundation (NSF) is an independent federal agency that supports fundamental research and education across all fields of science and engineering, with an annual budget of nearly $5.47 billion. NSF funds reach all 50 states through grants to nearly 2,000 universities and institutions. Each year, NSF receives about 40,000 competitive requests for funding, and makes about 11,000 new funding awards. The NSF also awards over $200 million in professional and service contracts yearly.

Receive official NSF news electronically through the e-mail delivery and notification system, MyNSF (formerly the Custom News Service). To subscribe, visit www.nsf.gov/mynsf/ and fill in the information under "new users".

Useful NSF Web Sites:
NSF Home Page: http://www.nsf.gov
NSF News: http://www.nsf.gov/news/
For the News Media: http://www.nsf.gov/news/newsroom.jsp
Science and Engineering Statistics: http://www.nsf.gov/statistics/
Awards Searches: http://www.nsf.gov/awardsearch/

Website Policies and Links | Privacy | FOIA | Help | Contact NSF | Contact Web Master | SiteMap

The National Science Foundation, 4201 Wilson Boulevard, Arlington, Virginia 22230, USA
Tel: (703) 292-5111, FIRS: (800) 877-8339 | TDD: (800) 281-8749 Last Updated:
April 27, 2005
Text Only